Pseudoconcave Sets and Positive Closed Currents

ABSTRACT:
The general aim of this project is to study the structure of positive
closed currents supported by topologically thin pseudoconcave sets, focusing
primarilly on the relationship between properties of currents and their
supports. Topologically thin sets in two complex dimensions are those fibered
along nowhere dense sets by a family of complex lines; their most important
subclass is formed by pluripolar pseudoconvex ones. The specific questions to
be considered group around the problems of characterization of supports of
positive closed currents, characterization of positive closed currents in
topological terms, uniqueness phenomena for positive closed currents, and
related problems of branching structure of thin pseudoconcave sets. Problems
involving the branching structure concern analogs of the mondromy group for
thin pseudoconcave sets and properties of the order structure on the reduced
homology group of the complement of the set in the ambient complex projective
space.
In the general context the problems addressed in this project concern the
the structure of currents with the singular supports. Currents are
generalizations of distributions to the geometrical setting and, as such, are
useful to analize low regularity phenomena that are studied with increasing
frequency in modern science. The broader aim of this project is to contribute
to the understanding of the notion of current and to increase its applica-
bility.